Modeling and Analysis of Persistent Gamma Rhythms and Their Role in Sustained Attention

The investigator and his colleagues construct and analyze
minimal mathematical models of gamma (30-80 Hz) oscillations in
the hippocampus and neocortex. The model networks are composed of
synaptically coupled excitatory and inhibitory (single- or
multi-compartment) integrate-and-fire neurons. A major aim of the
project is a deeper understanding of the persistent gamma
oscillations observed in vitro by Eberhard Buhl, Miles
Whittington, et al., and computationally simulated, using complex,
biophysically realistic models, by Roger Traub et al. The greater
simplicity of the models in the present study permits much more
extensive computational experimentation, as well as the
mathematical analysis of the characteristics of the oscillations.
Tools from stochastic dynamics (noise-driven excitable systems)
and probability (order statistics) are used in this analysis. The
investigator also studies hypothetical roles of gamma oscillations
in attentional processes. In this part of the project, the
working hypotheses are:
1. Widespread, persistent gamma oscillations with infrequent,
irregular participation of individual excitatory cells are a
correlate of sustained attention.
2. Ensemble-specific, transient gamma oscillations with
frequent participation of individual cells are a correlate of
focused attention.
Computational simulation and mathematical analysis are used to
examine hypothetical functional roles of persistent gamma
oscillations in sustained attention (vigilance), and interactions
of ensemble-specific transient gamma oscillations with a
background of widespread persistent gamma oscillations.

Strong experimental evidence has shown a correlation between
attention and gamma frequency oscillations in the brain. However,
it is not known how (or even whether) gamma oscillations support
attentional processes. This project aims at clarifying this link
using mathematical modeling, analysis, and computational
simulation. Some experimental studies have indicated
abnormalities in gamma frequency oscillations in the brains of
patients with schizophrenia or Alzheimer's disease. A deeper
understanding of gamma oscillations and their roles in attention
may therefore eventually prove important in understanding and
treating these diseases. The project also provides training
opportunities for undergraduate and graduate students.